Purchase of an X-ray Diffractometer with CCD Detector

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Emory University will acquire an X-ray diffractometer with CCD detector. This equipment will enhance research studies in a number of areas including the following: 1) synthetic models of iron sites in biological systems; 2) crystal engineering as a model of biomineralization; 3) scaffold approach to enantiomerically-pure substituted heterocycles; 4) inorganic clusters and cluster derived materials for catalysis, medicine and environmentally benign processes; 5) complex organic ring systems; 6) studies of organic-nitrogen moieties as potential catalysts for denitrification of petroleum products; 7) atomic dispersion parameters analysis by variable temp X-ray diffraction; 8) synthetic organic chemistry of bioactive organic compounds; 9) cascade processes in synthetic organic chemistry; and 10) preparation of nanotubes using oligomers of substituted ethynlterpyridyl metal complexes.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.